Dynamical Systems in Parasite-Host and Structured Population Models

Thieme
The investigator undertakes mathematical studies of
questions arising in ecology and population biology, focusing on
host-parasite systems and structured populations. With their
rapid turnover, parasitic populations are ideal objects to study
the principles of evolution; in turn, it is important to
understand these principles to control infectious diseases
effectively. Mathematical models and their analysis are very
much needed for a deeper understanding and as a theoretical
laboratory to devise control and management strategies. In fact,
many of the arguments on the adaptive dynamics of virulence have
become so complex that they can be more easily formulated
mathematically than verbally. While the health aspects of
parasite-host interactions are of immediate concern, their impact
on biological diversity may be as important. The mediation of
species coexistence through chaotic dynamics has gained a lot of
attention recently, but coexistence at equilibrium mediated by
parasites and by population structure may be far more prominent.
In the context of competition, coexistence, and evolution in
host-parasite systems, the investigator studies:
Coexistence and evolution of endophytic fungi,
Parasite mediated coexistence and competition, and
Prey-predator-parasite interactions.
Using structured population models, he studies:
The evolution of parasite virulence in structured host populations,
Apparent Allee effects in structured predator-prey systems, and
The evolution of polymorphism in amphibians.
Emerging and re-emerging infectious diseases and the danger
of bioterrorism have led to a renewed interest in host-parasite
systems. The fact that infectious diseases afflict not only
humans and their food sources (domestic animals and agronomic
plants), but also natural animal and plant populations, has
directed attention to the important and fascinating role of
parasites in ecosystems and in the maintenance of biological
diversity. Studying mathematical host-parasite models enhances
our insight in evolution in general and in evolution of hosts and
parasites in particular (evolution of virulence, co-evolution of
hosts and parasites). These models help to design disease
control strategies that avoid parasite resistance and decrease
parasite virulence (virulence management). They also lead to
environmental management strategies that are compatible with
species preservation. They can be used as educational tools in
graduate and undergraduate instruction and for effective
communication with the scientific community, public health
officers, and an educated public audience.